U.S.-France Cooperative Research: Problems Related to Level Zero Representations of Reductive Groups over Local Fields

This three-year award supports U.S.-France cooperative research in mathematics between Lawrence E. Morris at Clark University and Anne-Marie Aubert at the Ecole Normale Superieure in Paris, France. The objective of their research is to investigate various problems in representation theory of p-adic groups related to `level zero` representations. Representation theory of p-adic groups is an important and active field in number theory. The collaboration takes advantage of the complementary expertise of the U.S. and French investigators in representation theory.